Indo-U.S. Workshop on Advances in Construction Materials, Techniques, and Standards, Madras, India, June 1990 Award in Indian Currency

Description: This project supports participation of 8 U.S. scientists and engineers in a binational workshop on "Advances in Construction Materials, Techniques, and Standards" to be held in Madras, India in June 1990. The workshop is aimed at affecting professional interaction between engineers, scientists and industry leaders in India and the U.S. to advance the research and application of construction materials. Specifically it is proposed to: describe the systematic methods of construction, techniques used, and characteristic materials behavior in the U.S. practice; discuss potential applications of U.S. methods to India and other developing countries; project the future trends to determine research objectives and requirements for the next decade, and to focus Indian interest in potential cooperative research as related to construction material on a global basis. Scope: The importance of low-cost, efficient and reliable housing is recognized by all countries and especially by Less Developed Countries (LDC's). The objectives of this project, to provide a scientific basis for documentation of the state-of-the-art, and for research needs in this field, are relevant to both India and the U.S. The U.S. P.I. has well-documented experience in research and teaching in the construction engineering field. The Indian counterpart Dr. C.S. Krishnamoorthy is Head of the Structural Engineering Laboratory, of the Indian Institute of Technology, Madras. That Laboratory is active in this area of research with one cooperative research grant from NSF. Additional support in India will come form the Structural Engineering Research Laboratory (SERC) of the council of Scientific and Industrial Research (CSIR). The SERC in Madras is the best known Indian Laboratory in that field.